Laboratory Studies of Contact Forces Between Basal Clasts and Bedrock

Probably the most important mechanism of glacial erosion is quarrying:
the growth and coalescence of cracks in subglacial bedrock and
dislodgement of resultant rock fragments. Although evidence indicates
that erosion rates depend on sliding speed, rates of crack growth in
bedrock may be enhanced by changing stresses on the bed caused by
fluctuating basal water pressure in zones of ice-bed separation. To
study quarrying in real time, a granite step, 12 cm high with a crack in
its stoss surface, was installed at the bed of Engabreen, an outlet
glacier of the Svartisen Ice Cap, Norway. Acoustic-emission sensors
monitored crack-growth events in the step as ice slid over it. Vertical
stresses, water pressure, and cavity height in the lee of the step were
also measured. Water pressure was manipulated by pumping water to the
lee of the step. With repeated pump tests, the crack on the stoss face
grew until the step's lee surface was quarried indicating that
fluctuating water pressure caused stress thresholds required for crack
growth to be exceeded. To fully comprehend quarrying mechanisms, another
field effort will measure quarrying rates as a function of sliding speed
during the spring melt season when sliding speed is expected to increase
by a factor of 2 to 3. Acoustic emissions will be correlated to sliding
speed and also to natural water-pressure fluctuations. Results will
allow an assessment of the relative effects of sliding speed and
water-pressure variability on quarrying. By providing the first
measurements of crack growth in subglacial rock, this project will
provide the necessary data to correlate glaciological variables to
quarrying rates, removing the ambiguity that exists presently in
landscape evolution models which are grounded on uncertain erosion
rules. The field data will be combined with a theoretical model of
glacial quarrying. The culmination of this work will be a quarrying rule
that can serve as a basis for large-scale erosion models.